Postdoctoral Research Fellowship in Plant Biology

9303729 Freyermuth This is an individual award for the Postdoctoral Research Fellowship in Plant Biology. The applicant received her Ph.D. from Duke University and her Ph.D. research was in the area of microbial biochemistry. She also has research experience in cell wall metabolism in Arabidopsis. She plans to carry out her postdoctoral fellowship research in the laboratory of Dr. Joseph Polacco at University of Missouri. The proposed research entitled "Interactions between soybean and a bacterial commensal urease and nitrogen metabolism" will expand the scientific experience of this Fellow into plant-microbe interactions and nitrogen metabolism. ***